Novel Polymer Architectures

Polyrotaxanes, comprised of macrocyclic rings threaded by linear macromolecules, are a new and still unexploited family of polymers. Due to the potential for the macrocyclic components to move lateraly along the linear backbone as well as circumferentially, these systems are expected to possess properties distinct from those of traditional covalently bonded polymeric materials or blends thereof. The synthesis and characterization of a wide variety of structural types of polyrotaxanes will be carried out. Synthesis by statistical threading of macrocycles by linear monomers will rely on use of the cyclic as the solvent for the polymerization. A directed method is based on an attractive force between the macrocycle and the linear monomer, forming a stable threaded entity (a rotaxane) prior to polymerization. Stability against loss of the macrocycles by diffusion is ensured by incorporation of large end caps or bulky spacers along the backbone. Various combinations of the two components, over a range of polarity, will be considered. Among the macrocycles are both rigid and flexible crown ethers, hydrocarbons, and quaternary ammonium systems. Linear polymeric components, likewise, will vary widely from flexible to rigid-rod structures, formed by both step and chain- growth methods. The overall objective is to explore and exploit the novel topographic and topological features of this novel polymer architecture. Potential areas of utilization include interfacial bonding (adhesion, blend compatibilization), improved processability (enhanced solubility, lower melting points), stabilization (encasement of labile functionality), improved control of molecular ordering (electron and energy transport, molecular level interpenetrating networks for better mechanical performance), and understanding the diffusion of linear macromolecules in the bulk.